Experimental Study of Charm and Bottom Hadrons

9513999 Burchat This grant to a faculty member at Stanford University supports two research projects. First, she, a postdoc and graduate students will continue analysis of a massive data sample on Charm meson decays obtained some years ago at Fermilab. They are also established in the BABAR collaboration, an international group that has been formed to design and contruct the detector to be used to study Bottom mesons at the PEPII electron-positron collider at the Stanford Linear Accelerator Center. They will continue to the Vertex Detector component of BABAR and will develop and operate radiation monitoring devices to be used in a beam-abort system for the collider. ***